Effects of Controlled Irradiation and Ion Implantation in Polymeric Carbons

This Research Improvement in Minority Institutions (RIMI) project will assess the structural modifications caused by the implant of alien ions in selected polymeric carbons. Studies on the relatively simple monolithic, isotropic glassy carbon serve as precursors to work on the very complex polymeric carbons. Researchers will subject glassy carbon specimen to controlled radiation by protons and neutrons and examine the nature of damage using X-ray photoelectron spectroscopy and Raman Spectrometry. After irradiation, the materials will be heat treated to measure the energies locked in during irradiation. The temperature and the energy released will serve to characterize the defects induced. The Pelletron accelerator will be used to investigate the effect of silicon ion bombardment using the fact that silicon ions are known to react with carbon to form a stable oxidation resistant carbide. This investigation of irradiated polymeric carbon will significantly increase the research capability of a predominantly minority institution. The principal investigator has an international reputation in the carbon field and has published widely in the area. Faculty and students participating in this project will strengthen their research skills in irradiation and ion bombardment techniques.